Bose-Einstein Condensation and Related Problems in Trapped Atomic Gases

The present project is to support a graduate student as part of an ongoing program
that aims to develop the theory of Bose-Einstein condensation and related problems in trapped atomic gases. The proposed research on atomic systems is a vital facet of a long-standing complementary effort to discover and gain theoretical understanding of unusual states of matter that appear under extreme conditions, for example, of temperature, rotation, and density. The strong theoretical connections between ultralow temperature condensed atomic systems and many-particle systems in other areas of physics, including condensed matter, astrophysical, and nuclear systems, allow important cross-fertilization between these areas.